Mini Workshop on Verified Software

The construction of reliable software poses one of the most significant scientific and
engineering challenges of the 21st century. Professor Tony Hoare has proposed the
creation of a program verifier as a grand challenge for computer science. He has
outlined an international program of research combining many disciplines such as
the theory and implementation of programming languages, formal methods, program
analysis, and automated theorem proving. In order to take on Hoares grand
challenge, an IFIP Working Conference was held over five days during Fall 2005
in Zurich, Switzerland. The focus of the conference was on identifying practical
steps toward the realization of a successful program verifier. Topics discussed at
the working conference included advances in program specification, verification and
refinement tools and techniques, program analysis, tool integration, metrics, milestones,
and benchmark suites. Following the working conference, panels were formed to draw up a detailed road map for research in the area of verified software.
This award, supported by the NITRD High Confidence Software and Systems interagency coordinating group, enables a series of mini-workshops to expedite the activities of these panels in drafting a comprehensive road map.